PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Giorgio Young is " Spectral theory of Schrodinger operators and Jacobi matrices, integrable PDE". The host institution for the fellowship is the University of Michigan-Ann Arbor, and the sponsoring scientist is Peter Miller.